AIMing: Scalable Collaborative Human-AI Reasoning in Mathematics

This project develops a human-centered, AI-assisted framework for interactive mathematical reasoning and discovery. The project supports the iterative, intent-driven processes by which mathematicians formulate conjectures, refine definitions, explore partial arguments, and validate results. By tightly integrating human expertise with adaptive AI systems, the project (i) establishes effective human-AI collaboration paradigms that adapt to users’ expertise while preserving interpretability and mathematical intent, (ii) builds robust mathematical reasoning models via curriculum learning and contrastive learning, using high-quality, research-aligned synthetic data generation to capture the diversity of proof styles and definition systems used by mathematicians, and (iii) builds interactive reasoning tools, using formal theorem proving as a demanding use case that supports both exploration and verification through structured knowledge representations. Together, these efforts close the loop between informal reasoning, formal verification, and validated research outcomes, enabling scalable and reliable AI support for mathematical discovery.

This project introduces a new paradigm for AI-assisted mathematical reasoning that places interactive human-AI collaboration at the core of formalization, learning, and discovery. It establishes a closed-loop reasoning framework in which human mathematical intent continuously guides abstraction, data generation, and proof exploration. Key innovations include adaptive collaboration interfaces that modulate AI assistance according to user expertise while preserving interpretability; an integrated human-AI data generation workflow that produces high-fidelity, research-aligned training data through controllable blueprint construction and robustness testing of definitions; and an interactive theorem prover capable of reliably following human guidance via structured constraints, partial proof templates, and corrective feedback. Structured mathematical knowledge injection through a dynamic knowledge graph further strengthens these capabilities by enabling context-aware reasoning, discovery of relevant prior results, and self-evolving curricula aligned with active research agendas. The project also has significant educational and community impacts across multiple levels. A central component is a summer research program in the spirit of NSF’s REU, engaging both undergraduate and PhD students from Mathematics and Computer Science as users and evaluators of the human–AI platform. The project also seeds new curricula, including advanced undergraduate and graduate courses in Mathematics and Computer Science, a new cross-listed course on AI for Mathematical Reasoning. Outreach efforts extend to high school students through new tracks in established programs such as UCLA’s CSSI and DS4ALL programs, introducing a broad community of students to collaborative human-AI mathematical discovery without requiring prior coding experience. Finally, the project supports community formalization initiatives to engage professional mathematicians and the broader public in collaborative formalization projects, promoting openness and public understanding of modern mathematical practice.